Investigations into Set Theory and Ergodic Theory

Foreman will investigate the descriptive set theoretic
aspects of the classification problem for ergodic measure preserving
systems. He has partial results showing, for example, that they cannot be
classified by countable structures. He conjectures that the isomorphism
problem is provably complex, e.g. analytic but not Borel. The second
aspect of Foreman's proposal is to study ``canonical structure" in set
theory. This is structure that requires the Axiom of Choice for its
existence, but is independent of the choices made in it construction. Of
particular interest are PCF objects and relations with squares and
diamonds.

Foreman will investigate two areas of mathematics. The first has to do
with the evolution of complex systems in time. These systems appear to
show random behaviour, but of qualitatively different sorts. Foreman's
project is to show that various behavior types are not distinguishable by
concrete observations. The second project has to do with the assumptions
that the study of mathematics is based on. The usual assumptions are not
strong enough to be able to find the answers to all mathematical
questions. For this reason it is necessary to investigate strengthenings
of the ordinary assumptions. Foreman proposes to do this by focussing on
``canonical structure" in set theory.